Research in Gravitation Theory and Astrophysics

Professor Lindblom will continue his theoretical research on gravitation and astrophysics. He will emphasize astrophysical situations in which strong gravitational fields play a significant role. These problems can be divided into four major areas: a) the pulsations and stability of relativistic stars, b) superfluid hydrodynamics in neutron stars, c) dissipative relativistic hydrodynamic theories, and d) fundamental mathematical problems in relativistic stellar structure. Specific research problems in each of these areas will be carried out, for example: a) A new approximation method to evaluate the modes of rapidly rotating fully relativistic stellar models will be developed. This approximation is based on the fact that gravitational radiation couples only weakly to the modes of primary physical interest in neutron stars. b) The program to evaluate the effects of superfluid hydrodynamics on the gravitational radiation instability of rotating neutron stars will be continued. The next step is to finish debugging the computer codes that evaluate the modes of rapidly rotating superfluid neutron stars. c) The relationship between the dissipative relativistic fluid theories of divergence type and the Lagrangian based dissipative relativistic fluid theories will be investigated. It is hoped that the set of theories which belong to both classes can be identified and that these will contain a strong candidate to be THE theory of dissipative relativistic fluids. d) Further investigations into the possibility of determining the nuclear equation of state by measuring the masses and radii of neutron stars will be carried out.